HPLC Utilization in Organic Chemistry Laboratory Courses and Undergraduate Research Projects

Computer-controlled, high pressure liquid chromatography (HPLC) is a basic analytical tool and the foremost preparative technique for solution characterization and separation of organic and biochemical materials. The chemistry department at the institution identified as a curricular deficiency the lack of opportunity for the students to utilize such instrumentation. Alumni had indicated that their preparation for industrial employment and graduate study would have been greatly enhanced through HPLC experience. Through this project, the department acquired a HPLC system possessing the durability and versatility to instruct students in organic chemistry laboratory courses and to enhance the education experience of undergraduates involved in independent study research projects. The acquisition of a Waters DeltaPrep(TM) 3000 HPLC system has helped the department to meet its curricular goals. The institution has contributed to the project in an amount equal to the NSF funds.